Shipboard Scientific Support Equipment: Oceanographic Cable

Prop #: 0555000
PI: Trask

This award will supply oceanographic cable and wire for the UNOLS Wire Pool dedicated for use on any UNOLS vessel for support of marine research. The Shipboard Scientific Support Equipment Program provides funds for ship equipment deemed essential to the proper and safe conduct of ocean science research. The Program provides support for such items as deck equipment including winch systems for the deployment and retrieval of scientific instruments, navigational equipment such as radars, gyroscopes and earth satellite receivers to pin point the location of research sites, communication equipment including radio transceivers and satellite transceivers for voice and scientific data communications and other equipment such as motorized workboats for transporting scientists to and from data retrieval sites. The Project Director, Richard Trask is fully qualified to direct this project having had considerable experience in the design and fabrication of cables and wires, in addition to recent oversight of the distribution of wire from the UNOLS Wire Pool. This project will allow the institution to acquire wire and cable for the UNOLS Wire Pool over the next five years based on historical and projected fleet requirements. ***